Investigation of Discrete Stochastic Modeling of Thunderstorm Winds

The project analyzes winds due to thunderstorms and large scale extratropical storms separately to produce more reliable estimates of strong winds. The present state- of-the-art methods for estimating design wind speeds in non-hurricane regions of the United States do not distinguish between winds originating from large scale extratropical pressure systems and the small but intense thunderstorms occurring in the country. These two different meteorological phenomena have separate statistical distributions and should not be handled using a single distribution as is currently the case. The results of separating wind data associated with each phenomena and studying each separately will lead to a more statistically reliable estimates, and will provide insight into the meteorology producing strong winds at different localities and its application for structures design and safety.